Collaborative Computer Calculus Laboratory Manual

A collaborative, multi-software, multi-hardware computer calculus laboratory manual is being developed. It is being developed with the needs of minority institutions directly in mind, but will also be available to the general college population. The manual draws heavily upon the previous calculus project at Manhattan Community College. As a part of the development process, workshops are being conducted during which faculty from other colleges will participate in writing the workbook and prepare to use the materials in their home institutions.